CAREER: Towards Energy-Efficiency and Thermal-Aware Data Centers for Scalable AI

Training artificial intelligence models requires thousands of specialized compute platforms, such as graphics and neural processing units, working together in massive data centers that consume hundreds of megawatts of power per site. These chips generate significant heat, experience power spikes that exceed their thermal design power limits, and use mechanisms that automatically slow them down to avoid physical damage. Current training runtimes, systems, and software stacks do not account for these physical realities of hardware platforms and often assume that every chip runs at peak performance and behaves identically at all times. Instead, this project treats the data center as a cyber-physical system, meaning the artificial intelligence system that controls and schedules training is directly connected to and responds to physical conditions such as chip temperature, power draw, and cooling capacity. Because artificial intelligence models and infrastructure will continue to grow, this widening gap between execution assumptions and hardware realities represents a long-term research challenge. This project establishes a new area of research that treats artificial intelligence infrastructure, software and hardware, as a cyber-physical system.

The research is organized into three integrated thrusts. The first thrust builds a cross-platform framework that captures how thermal hotspots, frequency throttling, power spikes, and energy constraints fundamentally limit distributed training performance. The second thrust develops a new class of runtime algorithms that integrate thermally aware device placement, adaptive micro-batch scaling, and dynamic kernel and graph scheduling by embedding real-time hardware telemetry into training-time decisions across heterogeneous accelerators. The third thrust introduces a co-design methodology that jointly optimizes accelerator architecture, memory hierarchy, network topology, and runtime configuration under realistic thermal and energy constraints, treating the full distributed infrastructure as a coupled cyber-physical optimization problem rather than a collection of independently designed subsystems. Together, these thrusts lay the foundation for training systems that move beyond peak-throughput toward adaptive infrastructure that scales under real-world physical conditions.

This project will contribute to national artificial intelligence workforce development through the creation of a cross-disciplinary course on full-stack artificial intelligence infrastructure and the training of researchers at both the undergraduate and graduate levels. Students will gain hands-on experience with profiling tools, runtime analysis, and real-system experimentation on shared accelerator clusters. Outreach efforts will be open to all audiences through summer programs and interactive demonstrations. Open-source tools, profiling frameworks, and benchmarking results will be released to support transparency and accelerate community research in artificial intelligence system design as a cyber-physical infrastructure.